Analysis of the Role of a Cytosine Methylase from E. Coli in DNA Repair

The only cytosine methylase in Escherichia coli K-12, called Dcm, recognizes the sequence 5'-CC(A/T)GG-3' and transfers a methyl group to position 5 of the second cytosine. It appears also to be involved in a DNA repair process called vary short patch (VSP) repair. This process corrects T/G mismatches at potential sites of recognition for Dcm to C/G. It is believed to have evolved to eliminate potential mutagenic effects of the deamination of 5-methyl cytosine to thymine. Dr. Bhagwat will explore the role of Dcm in this repair process by means of biochemical and genetic tools. He will try to answer three basic questions (1) Does Dcm bind separate from those involved in DNA methylation? (3) Are there other proteins in the process that genetically closely linked with Dcm? Specifically, he will determine the sequence of the gene for Dcm (dcm) and purify its product. He will delineate the region within the clones carrying dcm gene that is essential for VSP repair and determine if it carries any genes other than dcm. He will also map regions within dcm required for such repair and correlate them with regions believed to be involved in DNA methylation. Finally, he will test the purified Dcm for binding to synthetic DNA substrates containing mismatches that resemble authentic substrates for VSP repair. Errors often occur in the replication of DNA when cells divide to form daughter cells. Cells contain machinery for the repair of these mistakes so that the occurrence of harmful mutations which would otherwise occur are lessened. One of the systems for this purpose is the "very short patch" repair system which the proposer is investigating with both genetic and biochemical approaches.